CAREER: Development of Microstructures for High Heat Flux Applications Utilizing Non-Intrusive Temperature and Velocity Measurement Techniques

The PI investigate the effects of controlling the surface microstructure on the single phase flow and heat transfer in microchannels, using whole field temperature measurement techniques. If successful, the research could lead to improved performance of MEMS devices and a variety of small scale, high heat flux devices, such as heat sinks for microprocessors, wearable air conditioners for harsh environments, and portable cooling units. The work could also clarify the sometimes contradictory and inconsistent body of experimental data that exist for heat transfer and fluid flow in microchannels. The educational plan includes the development of Cross Educational Research Teams involving graduate students, undergraduates and high school studens working with the faculty member as a coordinated team.